Riometry in Antarctica and Conjugate Regions

Abstract 9505823 Rosenberg The University of Maryland will continue their studies of the high magnetic latitude ionosphere and magnetosphere using galactic radio noise absorption techniques (riometry). Several years ago, they developed a new imaging riometer which allows the study of auroral morphology during daylight and through clouds. These imaging riometers are now being operated at Iqiluit, Canada; Sondestromfjord, Greenland; and South Pole, Antarctica. Additionally, they are operating broad beam riometers at Iqaluit, McMurdo and South Pole as well as auroral photometers at McMurdo and South Pole. In the next few years they will provide part of the hardware necessary to build imaging riometers at the British Halley Bay and the Australian Davis stations, both in Antarctica, thus considerably extending coverage. The riometers work synergistically with a number of other instruments which are operated at these sites by other investigators. A major focus of investigations over the next few years will be the characterization of drifting polar auroral patches and their relationship to polar cap convection. ***